Matrix Integrals,Combinatorics and Integral Lattices

Abstract for DMS - 0100782

(1) What is the distribution of the eigenvalues of a
random matrix, with certain symmetry conditions to
guarantee the reality of the spectrum? What happens to
the distribution, when the size of the matrix gets
large? What about universality in the limit?
(2) What is the statistics of the length of the
longest increasing sequence in random permutation or
random words (Ulam's problem). This question applies
to models of interface growth, polymers in random
environments, first passage percolation problem, and
"dimer" configurations.
(3) Integrals over groups and symmetric spaces, (or
over their tangent spaces) lead to a variety of
interesting matrix models. The coefficients of the
(perturbative) expansions have striking combinatorial
or topological significance and can be computed in a
recursive way. This work originates in the works of
Feynman, 't Hooft, Bessis-Itzykson-Zuber and Witten,
in the context of string theory.
(4) The sample canonical correlation coefficients
(maximum likelihood estimates) for the canonical
correlation coefficients of two Gaussian populations
are the test statistic for the statistical
independence of the two populations, as studied by
Hotelling, James and Constantine.
(5) The four problems above and their
"time"-perturbations are all solutions to integrable
equations or lattices. For large random matrices or
permutations, they are solutions to the Korteweg-de
Vries equation. In the finite case, they are solutions
to the Toda lattice, and to two new integrable
lattices, the Pfaff and Toeplitz lattices.
%Besides matrix integrals solutions, these lattices
%have interesting rational solutions.

It is fair to say that matrix integrals point the way
to new integrable systems, but also to new
combinatorial and probabilistic questions !
General description: The problems above
relate to a number of important questions in physics,
engineering and statistics:
Problem (1) has its origin in the study of energy
levels (excitation spectra) of heavy nuclei in nuclear
physics (Wigner, Dyson). These levels are so intricate
that any explicit description would be intractable.
For that reason, Wigner proposed a statistical model
for these energy levels. Concerning problem (2),
it is well known that a large percentage of computer
time is devoted to the rearrangement of the data used
in the course of computations. How many data, after a
complete reshuffling, are statistically still in order?
This question of random permutations also applies to
statistical mechanics, the basis of thermodynamics,
and to questions of polymers. Some of the matrix
models (3) provide toy models for string theory,
an important set of ideas at the basis of the
fundamental interactions in the physical world.
It turns out that certain matrix models, mentioned
above, are used in testing whether two sets of
statistical data are correlated, as sketched in (4).
The Korteweg-de Vries equation, the arch-type
``soliton equation", describes the propagation of
waves in shallow water; a similar non-linear partial
differential equation governs the propagation of
ultra-short pulses in optical fibers, when the wave
length is long compared to the diameter of the fiber.